Use of the AP-PCR Method for the Development of Molecular Markers in Phytoplankton

Two methods of Arbitrarily Primed Polymerase Chain Reaction (AP-PCR) for the development of molecular markers for populations and species of marine phytoplankton will be examined. These are Random Amplified Polymorphic DNA (RAPDtm) and transfer RNA-PCR (tRNA-PCR). Preliminary data obtained using the eucaryotic picoplankter. Nannochloropsis spp. (Eustigmatophyceae) provide supportive evidence of the utility of these methods.